Models of Activity Cycles of Chromospherically-Active Binary Stars

It is now believed that many stars with surface temperatures like the sun's and less have magnetic activity cycles similar to the 11-year cycle of the sun. One group of such stars are the so-called RS CVn stars, whose active regions are thought to be associated with cool, circular starspot regions. The Principal Investigator (PI) proposes to use archival and newly obtained photometric data for the investigation of eclipsing RS CVn stars. The goal is to determine whether the long-term trends in sizes and locations of the active regions of these stars will reveal magnetic activity cycles similar to the solar cycle. In addition, the PI proposes to determine the temperature of the stars' spotted regions relative to their photospheres.